Mathematical Sciences: Microlocal Analysis and Applications

Two themes will be developed during the course of this project. Each centers on fundamental questions related to partial differential equations. In the first instance work will be done investigating the propagation of singularities for solutions of nonlinear partial differential equations. The basic question is one of predicting singularities in positive time knowing the singularities which occurred in the past. An analogous problem is the description of the singularities from knowledge of the Cauchy data at the initial time. The propagation of singularities is a microlocal phenomenon, as pointed out by Huygens centuries ago. The modern exposition of this principle is given by the wave front set and, depending on which Sobolev space contains a solution, the singularities travel along bicharacteristics, as in the linear case, or else require intricate description - which represents one of the goals of this work. A second line of research will deal with the local solvability for pseudo-differential operators of principal type. One is interested in solutions of the associated nonhomogeneous equation. Earlier work of Nirenberg and Treves proved a sufficient condition for local solvability in the analytic case for differential operators. Roughly the same condition gives a necessary condition for local solvability for pseudo-differential operators. Recently, sufficiency of the condition was shown for the two-dimensional case. Work will concentrate on lifting this dimension restriction.